Barium fluxes in the Alboran Sea (SW Mediterranean): Elemental Tracers as Proxies of Productivity and Environmental Processes.

ABSTRACT

OCE-0136853

The proposal will enable a collaboration between Oregon State and geochemists of the Consolidated Research Group in Marine Geosciences at the University of Barcelona, Spain. The purpose of this collaboration is to extend some analyses of sediment trap materials collected from sites in the Alboran Sea, during June 1997- May 1998 as part of an EC funded Mass Transfer and Ecosystem Response (MATER-II) project. Particulate matter barium fluxes and other lithogenic tracer analyses, to be part of a dissertation of a student from the University of Barcelona, are to be completed with facilities at Oregon State. The scientific goals of the project are a better understanding of the causes of variability in the Ba/Corg ratios found in different ocean regions.